Collaborative Research: ITR: Mobile Supercomputing

Abstract
Researchers at The University of Michigan, Arizona State University, and Princeton University
will, during the next four years, explore core technologies for the next generation of computer
systems, suitable for untethered pervasive computing. The requirements of the computing sub-strate
in such devices is mind boggling, and so we have collected our research under the title of
Mobile Supercomputing. We believe this phrase captures the need for the order-of-magnitude
increase in performance need by such systems, while maintaining the minimal power budget that
is essential for mobile computing systems. The core technologies are a synergistic combination of
novel co-design and circuit techniques that integrate into a generic platform architecture for
mobile supercomputing.

The significance of this work for the user of tomorrows pervasive mobile computers will be that
that they will provide a highly versatile light-weight computing and communication device with
hands-free user interfaces such as speech recognition, gesture recognition, facial expression, and
streaming voice/video. This will allow the user to perform stand alone computing, communicate
with others in a number of ways, and provide a sophisticated portal to the internet and other
remote computing resources.